Mathematical Sciences: Asymptotics of Stochastic Processes and Applications to Optimization, Filtering, Prediction and Artificial Intelligence

This research will study various aspects of the solutions of nonlinear stochastic differential and difference equations. Among the problems to be viewed are the asymptotics and the distribution of the solutions to these equations. An attempt will be made to find ways to estimate the coefficients of the equations. A closely related problem of filtering will be considered as well. Monte Carlo simulations and optimization will be employed.